Conference on Race and Science

9354153 Early Under the general title of The History of Blacks in the Growth and Development of Scientific Thinking, this conference will examine the "scientific" history of the concept of race in human society, largely in the context of 19th and 20th century concepts, and the history of Blacks in science. The conference will be multidisciplinary, involving biologist, geneticists, social scientist, intellectual and social historians, and students of literature and rhetoric. The conference is organized by the Department of African-American Studies at Washington University, and the Missouri Botanical Garden. ***